SBIR Phase II: Incorporation of Carbon Nanotubes into Nylon Filaments

This Small Business Innovation Research Phase II project will continue developing a method for incorporating Single Walled Carbon Nanotubes (SWNT) into nylon to act as reinforcement. Their incorporation will be achieved by wrapping the SWNTs with a functionalized polymer that interacts with the SWNTs mechanically, but is not chemically bound to them. The polymer will be chemically bound to the nylon and in this way will act as a load transferring conduit between the nylon matrix and nanotubes in the final composite. How well the polymer transfers the extraordinary strength and durability of the carbon nanotubes to the nylon composite will depend on how well this new interface, between the SWNT and the nylon matrix, functions. For nylon fibers, the degree to which it is possible to align the SWNTs along the major axis of the fiber filaments will play a role in the fiber's thermal and electrical conductivity as well as strength. The primary focus of this work is to optimize the SWNT/nylon matrix interaction in order to obtain the best load transfer properties. Methods to align the SWNTs along the long axis of the nylon filaments in order to maximize fiber strength will also be investigated.

Commercially, this high strength nylon composite will have significant applications in the aerospace industry for use in fabricating lightweight, retrievable, satellite launch vehicles, reusable space craft etc. The military will also be interested in this technology because of the combination of exceptionally high strength, lightweight and stealth capability. The successful development of this technology will result in new lightweight thermoplastic composites that have extraordinarily high flexural, tensile and impact strengths and can be easily molded into any shape desired. This new technology will eventually be applicable to many other materials. Additionally, since these composites are thermoplastics and not a thermosets, they will be more easily recycled.